ITR: A Domain-Specific Language for Infopipes

This project is creating programming language technology and tools to
aid the development of performance-sensitive distributed streaming
applications, such as real-time sensor networks. The basic idea is to
design programming abstractions that are specific to the domain of
streaming applications, and to develop checking and compilation tools
for mapping them to the underlying operating system mechanisms and
network protocols.

The approach is based on the "Infopipe" programming model, a novel
approach to building streaming applications, currently under
development by the PIs. Experiments with an early prototype have
shown Infopipes to be very promising. However, language tools for
simplifying the programming task, checking correctness properties and
ensuring adequate performance of complex "Infopipelines" do not
currently exist. This proposal outlines the research involved in
creating these tools and presents some novel ideas on the language
primitives and tools for Infopipes, the kinds of Infopipe properties
that can be automatically checked, and the conceptual foundation that
enables this checking to be rigorous.